US-France Cooperative Research: Nuclear Spin Dynamics in Solid and Liquid Helium Three

This award will support cooperative research between Dr. Pradeep Kumar, University of Florida and Dr. Maurice Chapellier, Laboratoire de Physique des Solides, Orsay, France. The investigators propose to study the dynamics of nuclear spins in a quantum fluid or solid. Specifically, the research will focus on the following three problems: (1) Polarized pure and dilute __________________________ liquid. The investigators plan to study the spin-lattice ______ relaxation time T1 and distinguish between the role of bulk and various surface mechanisms. They will also investigate the viscosity and sound attenuation as a function of the polarization. (2) The solid/liquid interface: The principal problems include the __________________________ details of the crystallization process, as well as the transfer of magnetic energy across the interface. The precise nature of the solid and the liquid near a wall has a critical bearing on these questions and will also be studied. (3) Low density solid helium _________________________ three: In both bulk and constrained geometry, the investigators _____ propose a precision study of the anomalous susceptibility to test the polaron model and to investigate the relaxation induced by vacancies in general. Both the U.S. and French investigators have extensive research experience in the area of quantum fluids and solids, and in particular liquid and solid helium three. The results of this research will contribute to the understanding of the properties of quantum liquids and solids systems, which is of basic importance to condensed matter physics.